Academic Research Infrastructure: Development of a Wide Area Scalable Infrastructure for Data Intensive Computing: Consortium Proposal

9601861 Hollebeek, Robert Smith, Jonathon University of Pennsylvania Academic Research Infrastructure: Development of a Wide Area Scaleable Infrastructure for Data Intensive Computing: Consortium Proposal This Academic Research Infrastructure award supports the acquisition of equipment to enhance the National Scaleable Cluster Project. The equipment will be sited at 3 universities to further the development of a national meta computing center. The equipment consists of large fast disk arrays, high performance computer cluster enhancements, ATM network switches to OC-12 capabilities, network connections, and associated software. The research projects supported by the equipment include: 1. Applications computing that is data intensive including data mining of particle physics data, digital library development of the linguistics data consortium, digital library development of astrophysics, gravitational lenses data maps, galactic large structure simulations, and the development of numerical and statistical digital libraries. 2. Real time computing applications including collecting reduced astronomical data, medical imaging, and telepresence. 3. Parallel compute intensive applications including liquid crystal imaging, phase transition simulations, crystal surface computational studies, and vortex flow studies. 4. High speed network research including network striping and the inclusion of tertiary store in high performance memory hierarchies. 5. Computer science research on scaleable object stores, research on caching, transforming, and replicating data, and software tools for cluster management.